GOALI: Implementation of Seat Support Forces and Posture Measures into a Kinetic Model

9712564 Hubbard The aim of this research is to integrate posture measurements with the measurement of postural support forces into a kinetic computer model of seated people. This kinetic model would include the biomechanics of human posture and movement with the support forces. The support forces and postural changes would be measured on a group of subjects and be used to develop the model. Inputs to the kinetic model are posture, weight distribution, and support forces. Outputs from the model will be computations of forces and moments at the joints between the human body segments. This kinetic model will include the kinematic linkage of the human, based on anatomical structure, which has been validated based on past and current studies by the investigator. This kinematic linkage simulation can be scaled to fit size and movements of individual human subjects. The weight distribution will be estimated from anthropometric measurements for each of the body segments. This research is in collaboration with an industrial partner, Johnson Controls, Inc., a designer and manufacturer of automotive seats. However, this research also has potential application for any seating industry that must provide appropriate support for task function, e.g., military, office, medical, etc. This funding would provide support for an engineering graduate student to perform part of her Ph.D. research in collaboration with the industrial partner. ***